Simultaneous Seamtracking and Weld Penetration Control

The research will investigate simultaneous adaptive control over two variables of the welding process, seam tracking and weld penetration control. This will be accomplished by using advanced infrared sensing techniques to monitor the thermal field in the vicinity of the weld pool. While both theoretical solutions and experiment agree sufficiently to enable dynamic control of either seam tracking or penetration control, the simultaneous identification, sorting and correction of two or more perturbations presents an immense problem in theoretical and practical analysis. This research will develop the theoretical and experimental tools to identify, sort and understand changes in surface temperature distributions resulting from simultaneous, intentionally induced errors in weld penetration and torch position. Theoretical models of heat transfer will be advanced to describe the surface temperature distribution for simultaneous perturbations in the process. Computer hierarchial methods of analyzing the thermal fields and the implementation of the control responses will be developed. The ultimate result of this research will be the advancement of the scientific basis upon which future machines may be produced that are capable of eliminating defective welds and increasing the productivity of the welding process.